An Investigation into the Constitutive Equations Pertaining to Electroplasticity in Metals at High Homologous Temperatures (T > 0.5 TM)

This is a proposal to study the constitutive equations that apply to the plastic deformation of metals at high temperatures when an external electrical field or a current are also applied to a specimen.